Pathways, Networks and Systems - Theory and Experiments Conference to be held Fall 2003, Island of Santorini, Greece

Case Western Reserve University has been awarded a grant to hold a workshop from September 28th-October 3rd, 2003 on the Island of Santorini in Greece with the aim of bringing together a very broad group of researchers to integrate their very disparate data sets to solve some very basic and fundamental problems in biology. Specifically, the main focus will be resolving a model for looking at the multidimensional nature of protein function in time, space and context. A large part of this involves specifically determining how to combine disparate sets of data on sequence, structure, pathways, networks and function. The conference will include many young and early career researchers.